Digital Government: Citizen Access to Government Statistical Data

EIA-9976640
Marcionini, Gary
Liddy, Elizabeth D.
University of North Carolina @ Chapel Hill

Digital Government: Citizen Access to Government Statistical Data

This proposal will conduct research to improve the location/retrieval, reading, navigation and manipulation of tabular statistical data from Federal agencies. These data cover many different domains (e.g., health, labor, transportation), of interest to professionals in the field and to citizens. This work will be accomplished through collaboration with the Bureau of Labor Statistics, the Energy Information Agency, the National Center for Health Statistics and the Bureau of Census. In addition to the Federal agencies, the partnership includes researchers from the University of California at Berkeley, Syracuse University, the University of Maryland and Textwise, a commercial company.